Mathematical Sciences: Analytic Theory of L-Functions

This grant supports the research of Professors Brian Conrey and Amit Ghosh to work in analytic number theory. Professors Conrey and Ghosh will study a broad class of problems involving the analytic continuation of L-functions and their growth. In particular, they will study both general problems about classifying Dirichlet series and particular questions involving mean-value theorems for specific L-functions of arithmetic interest. The field of analytic number theory applies to the discrete realm of the whole numbers the techniques of analysis, dependent on the notions of continuity and limit, originating in calculus. The idea of using continuous methods to investigate the discrete is two centuries old, but with the work of the modern analytic number theorists, the field has had a new rebirth.